ITR: Scalable, Attack-Resistant Peer-to-Peer Networks

Proposal Number: 0313160

Title: "ITR: Scalable, Attack-Resistant Peer-to-peer Networks"

PI: Jared Saia

Abstract:

This project investigates the design of peer-to-peer networks which are
both provably scalable and attack-resistant. The networks are
scalable in the sense that time, space and bandwidth resource costs
for all major operations are polylogarithmic in the number of nodes in
the network. The networks are attack-resistant in the sense that most
of the services are guaranteed to most of the participants, even after
massive adversarial attack. The approach of this project is primarily
theoretical, i.e. algorithm design and analysis. However, the project
also includes building prototype systems to empirically test the
algorithms.

This project has potential for significant impact in other areas of
research. One major deliverable of the project is algorithms for
creating a p2p network which, even under attack, will enable sharing
of massive data sets. This type of network could have an impact on
several scientific disciplines, including, physics (e.g. for projects
like GriPhyN), astronomy (e.g. for projects like Sloan Digital Sky
Survey), and biology (e.g. for projects like the Human Genome
Project). Another major deliverable of this project is algorithms for
creating a p2p network which, even under attack, will enable
distributed computation. This type of network would allow scientific
projects to tap into idle desktop computers to efficiently and
robustly do lengthy computations. Astronomy (e.g. for projects like
SETI@home) and biology (e.g. for projects like FOLDING@home) are
examples of disciplines that would benefit from such a network.
Finally, it is expected that the project will provide theoretical
insights into the problem of building robust embedded networks, which
share many similarities with p2p networks.